Mathematical Sciences: Greater Boston Logic Conference, Spring 1995

9415827 Hrushovski Since the early 1980's, the Greater Boston Logic Conference has offered a major opportunity for prominent researchers and graduate students alike to meet on an extended and concentrated basis. The Greater Boston Logic Conference, to be held at the Massachusetts Institute of Technology on May 27-30, 1995, is a continuation and expansion of this biennial conference series. Each day of the four-day conference will be divided into morning and afternoon sessions, of which the morning sessions will consist of plenary lectures by the invited speakers, of interest to a general audience of logicians. Each afternoon session will consist of three or more simultaneous workshops, each workshop emphasizing an advanced topic within Model Theory, Recursion Theory, or Set Theory. These will include workshops on Model Theory and Analytic Functions, Applied Stability Theory, Degree Theory, and Inner Model Theory and Fine Structure. The workshops' goal is to aid both established mathematicians and graduate students to break into important, fast developing, and technically difficult areas. Workshop speakers will be encouraged to give complete proofs and to explain the methods and intuition behind them; there will be considerable time devoted to questions and discussion. The majority of the funds provided by the National Science Foundation will defray travel expenses for graduate students and postdocs. Funds will also be used for invited speakers without other grant support. ***